Oxidation Properties of Vapor Grown Graphite Fibers (Materials Research)

Graphite composites have many attractive mechanical and thermal properties, these properties degrade substantially with oxidation. A novel graphite fiber has been developed which has superior properties for tensile strength and modulus. This research will measure the oxidation properties of this materials as a function of temperature in several preparations designed to enhance the oxidation resistance of the fiber.